Expedited Award for Novel Research: Real Space Transfer Dual Switching Field Effect Transistors using III-V Modulation Doped Heterostructures

The PI will carry out collaborative research activities with the Electronics Technology and Devices Laboratory (ETDL) at Fort Monmouth, New Jersey involving the design, fabrication, modelling and characterization of a novel real-space transfer switching MODFET device structure. The design details of the test device structure will be jointly developed between the two laboratories. The actual device fabrication work will be carried out at the ETDL with direct participation of a senior graduate student from PSU who will stay in Fort Monmouth area on a temporary basis.